Bacterial Evolution of Adaptive Phenotypes

Mutations are one of the mechanisms by which bacteria evolve new physiological and metabolic capabilities. It is presumed that mutations occur randomly in dividing cells without regard to their utility. They occur predominately by mistakes during DNA replication or repair. Recent evidence from extended nonlethal selections suggests that under certain conditions the selection itself can influence the rate or nature of the mutational events. This referred to as adaptive mutagenesis. It appears to occur only during periods when cell growth is limited by some nutritional scarcity, which is a common and recurrent environmental condition for bacteria in the natural world. Currently, we know very little about how bacteria genetically and physiologically respond to natural environmental conditions such as nutritional scarcity. We are using a combination of microbiological, biochemical and genetic approaches to determine if mutation rates increase during extended nonlethal selections and if the mutational events show preference for specific regions of the genome. %%% The information obtained from this project will allow us to decide if adaptive mutagenesis is a general physiological response in Escherichia coli bacteria and will extend our knowledge of bacterial physiology in cells that are in a non-growing but metabolically active state.